Research in Theoretical Nuclear Physics

0070161
Balantekin
The proposed area of research is in the area of theoretical
physics with an emphasis on understanding results from the
ongoing experimental activity in the United States and abroad. A
number of different projects will be carried out with the
participation of younger scientists who recently received their
doctorates and those who are currently working on their doctoral
dissertations in the research activity of the senior scientists.
The projects will include efforts i) To understand
energy-producing activity in the core of the Sun and other stars; ii)
To explore the origin and formation of heavy elements in different
sites around the universe; iii) To study the properties of tiny
particles called neutrinos that are produced both in the laboratory
and astrophysical settings; iv) To develop mathematical techniques to
model nuclei and similar complex systems; v) To understand how heavy nuclei break up when they collide in laboratory experiments; vi) To explore properties of unstable nuclei that are produced in the
laboratories. These projects are chosen not only to contribute to our
knowledge of fundamental physics but also to the training of the young people involved.